Workshop on Advanced Intelligent Flexible Assembly Systems; Cincinnati, Ohio; September 11-14, 1988

This grant is to support a three-day workshop to define the primary research issues in Advanced Intelligent Flexible Assembly Systems. The workshop will identify existing blockages as well as opportunities and strategic directions for research in this area. The study is expected to provide stimulation to industries, universities, and U.S. government research agencies in their collective efforts for the enhancement of the science and technology in Advanced Intelligent Flexible Assembly Systems. The workshop will be held at the Institute of Advanced Manufacturing Systems in Cincinnati, Ohio, on September 11-14, 1988.